Collaborative Research: Law Making and Decree Making in a Mixed System: Inter-Branch Relations in Russia

9631221 Remington This research involves a study of the influence of institutional arrangements on the process of democratization and stabilization in a mixed system.. ***